Structure and Dynamics of Inorganic Network Glasses

9508625 Zwanziger Studies will be conducted on the short and intermediate range structure in several oxide glass systems, based on borate, tellurite, and phosphate. Structural features of the glass transition will be probed, as well as the structural features responsible for various optical and transport properties in these materials. The experimental methods to be used include one-and two-dimensional nuclear magnetic resonance, Raman scattering, and thermal analysis. These experiments are expected to reveal significant microstructural details relevant both to fundamental and applied aspects of glass technology. %%% Research efforts will be conducted, covering the fundamental and technologically important issues in borates, tellurides and phosphate glasses which will impact significantly in understanding the nonlinear optical and infoared transmission properties of glasses.